Rigidochromism in Tetranuclear Copper-pyrazolate Macrocycles and Networks

In this project, Professor Alexander Wei of the Department of Chemistry at Purdue University explores the chemistry and materials properties of copper-based complexes that produce short-wavelength emissions, with the potential to support next-generation light-emitting diodes and solid-state lighting using earth-abundant elements. Research goals include understanding the effects of temperature, pressure, and chemical structure on emission wavelength and efficiency, based on investigations in chemical synthesis, photo-luminescence spectroscopy, x-ray crystallography, and computational methods. The project will train students at the collegiate and predoctoral levels, and support the development of modules for classroom labs and demonstrations.

Advances in organic light-emitting devices (OLEDs) depend on chemically robust materials that emit at blue wavelengths. Metal‒ligand complexes are promising candidates as solid-state luminophores with high quantum yields but the rational design of efficient phosphors with emission wavelengths below 460 nm remains challenging, as their excited-state structures often have relaxation pathways that produce emission at longer wavelengths. Macrocyclic copper(I)–pyrazolate complexes have been shown to produce room-temperature phosphorescence with deep-blue emission, and their systematic analysis is establishing principles for designing molecular structures with rational control over their excited-state conformations. Professor Alexander Wei and his research group will build on new knowledge generated from the their previous funding cycle to explore structural and environmental parameters that impact the rigidochromic luminescence of tetranuclear copper–pyrazolate (Cu4pz4) macrocycles, with an emphasis on the electronic and steric factors that enable emissions in the violet–blue region.